FSML-Planning Activities: Turtle Cove Environmental Research Station

The Turtle Cove Environmental Research Station has become an important focus for research and educational programs on the Lake Pontchartrain system. Use of the facility has increased dramatically in recent years and Turtle Cove has reached a significant stage in its development, where facility demands exceed available resources. Plans are being developed for construction of new facilities to enhance the mission and scope of Turtle Cove by providing additional research and educational laboratories, housing for students and scientists, supporting facilities such as docking and boat storage, and complementary on-campus facilities. However, several questions remain regarding how construction should be prioritized, how educational and research programs should progress, how the facility should be administered, and what activities should be emphasized. Wetlands acreage (approximately 324 hectares or 800 acres) has been donated to Turtle Cove recently and plans need to be developed for the potential use and incorporation of such lands into programs at the research station. Therefore a planning workshop, to be held in February, 1998, is will address these and other questions, and will develop long-term plans for development of the station. In addition support will be provided for data management training for the station data manager. Such training in automated monitoring of weather and water quality data, and the proper archiving procedures for such data will improve the long-term data set being generated by the station. The proposed planning process should help to insure that Turtle Cove will reach its goal to become a nationally recognized center for environmental education and research in low-salinity estuarine environments.